NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750030 Susan C. Jacobs This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Evolution of the X-linked color vision gene in squirrel monkeys." Monkeys of the genus Saimiri possess one autosomal and one X- linked color photopigment gene. Three alleles of the X- linked gene have been identified. Maintenance of heterozygosity at this locus has been attributed to foraging advantages. The hypothesis of heterozygote advantage predicts the existence of additional alleles at this locus. This research examines genetic diversification in the X- linked color vision gene among Saimiri.